SHF: Small: A Higher-Order Framework for Meta-Theoretic Reasoning

This project develops a logical framework that is well-adapted
to the tasks of formulating and proving meta-theoretic properties of
programming languages and the correctness of translators and
compilers; these tasks arise naturally in the context of ensuring the
safety and security of software. The framework being investigated is
specialized to reasoning about relational specifications concerning
formal objects that embody a binding structure. Such specifications
simplify the encoding of formal systems that often treat syntactically
complex constructs and that also manifest non-deterministic and
non-terminating behavior.

Underlying the framework is an expressive first-order logic that allows
predicates to be interpreted through fixed-point definitions and that
also includes inductive and co-inductive principles for reasoning
about such definitions. One project goal is to enrich the form of
definitions permitted in this logic and to add the ability to quantify
over properties or predicates to it. Another goal is to develop a methodology
for using the enhanced logic in actual verification tasks such as proving
the correctness of compilers for functional languages. The project will
make available to the research community an enhanced software system that
supports formalization and verification tasks of the kind outlined. At a
foundational level, the research leads to a better understanding
of the interaction between inductive definitions and higher-order
quantification, an issue that is important to many modern
theorem-proving systems.